Modern Cellular and Molecular Biology in the Undergraduate Curriculum.

Modern Cellular Biology and Genetics courses for majors are being developed with the purchase of major instruments including a tabletop ultracentrifuge, a high speed refrigerated centrifuge, three general-use spectrophotometers and five phase contrast microscopes. The equipment is being used in the preparation of cell extracts and enzyme assays, plasmid purification, recombinant DNA techniques, organelle isolation, the observation and experimental manipulation of cell-cell interactions using animal gametes, and for various undergraduate research topics in Cellular and Molecular Biology.